SBIR Phase I: Advanced Portable Power Generators

This Small Business Innovation Research (SBIR) Phase I project evaluates a completely new low cost/high efficiency generator system called Q-Gen™ Portable for use in portable recharging devices. The Q-Gen™ Portable will recharge handheld electronic devices (laptops, cell phones etc) without requiring the grid or a fuel source. In addition, an initial analysis suggests that utilizing QM Power actuators and generators in a combined renewable energy recharging system called Q-Stor™ Portable has the potential to further reduce the human input requirements for even superior recharging capability and dramatically improve the commercial viability of non-fuel renewable energy portable power generation systems.

The broader/commercial impacts of this research are responsive to the fact that high energy prices and usage have accelerated the growing global demand for energy efficient products and low cost energy generation. QM Power’s generators can be used to significantly increase the efficiency and power density of all commercial and consumer electric generator applications including portable power, auxiliary power units, transportation alternator systems, renewable and non-renewable electricity generation platforms (impacting over $1 trillion a year in electricity generation).